SBIR Phase I: Fire-Resistant Polymer Composites Using Recycled Processed Bio-based Natural Polymer

The broader/commercial impact of this Small Business Innovation Research Phase I project is in addressing an increasing need to develop more eco-friendly, non-toxic fire-resistant materials in applications ranging from protective gears for firefighters, for industrial workers working in hot environments, and in construction materials such as tiles, wall panels, and roofing. Creating improved fire-resistant materials for homes, buildings, and personnel will decrease costs to homeowners and insurance companies and can potentially save lives. The rise in global temperature, and the escalating frequency and severity of structural and wildfire incidents at scale, combined with need to use non-fossil fuel based materials in industry underscores this critical need. This project is likely to to introduce a a bio-based natural polymer to be developed as an additive to fire-resistant products. A successful development of this technology is also likely to create economic opportunities for a broader section of society that would participate in this novel endeavor.

The novel material under development possesses notable characteristics such as a high nitrogen content, robust elliptic structure, and cross-linked cell membranes. When subjected to high heat levels, these cell membranes expand and create a protective barrier, hindering oxygen from reaching the substrate and thus preventing the spread of fire and heat. The processed material does not liquefy, merge, or melt and can act as insulation or a barrier, impeding or reducing fire spread. This remarkable discovery represents a significant advancement in creating lightweight, fire-resistant building materials, clothing, and reinforcing fire-resistant plastics. Phrase I R&D plan focuses on optimizing material compositions and adjusting polymer loading in the composite mix will adjusted through scientific experimentation for processing ease and improvement of desired properties. These compositions will be then used to develop prototype products that meet or surpass the industry performance standards set by existing fire-resistant products.